Moduli spaces in enumerative and combinatorial geometry

The investigator will study several enumerative and combinatorial problems
in algebraic geometry. In particular, she will study Gromov-Witten theory
of Deligne-Mumford stacks with applications to classical enumerative
geometry, higher-dimensional analogues of the moduli space of curves, and
(equivariant) cohomology and (equivariant) Schubert calculus of Hessenberg
varieties and affine Grassmannians. These are distinct projects, but are
similar in that each of the spaces involved has a rich combinatorial
structure.

It is a fundamental problem in algebraic geometry to understand objects
satisfying certain geometric criteria, often naturally parametrized by an
algebraic scheme or stack. Such moduli and parameter spaces are at the
forefront of mathematical and scientific research. Enumerative and
combinatorial problems which arise are of particular excitement as part of
a collision of the fields of algebraic geometry, algebraic combinatorics,
symplectic geometry, and representation theory, as well as topology and
theoretical physics.